Development of SPEAR for Ultra-High Vacuum-High Resolution Electron Microscope

This project for instrument development will provide components for a multichamber surface science system that will be attached to an ultra-high vacuum high resolution electron microscope at Northwestern University for the fundamental study of material surfaces. Unique studies of film growth, interactions of gases with surfaces, fundamental surface science, and buried interface problems with a true marriage of traditional surface science and high resolution electron microscopy will be capable with this instrument. The basic idea is to change from a single, limited transfer chamber to a set of interconnected chambers, each specializing in a different set of techniques. The resulting system will consist of four chambers with a small airlock specimen entry system and a central transfer vessel. This project has several goals: to store samples under UHV, to have separate chambers where deposition or gas treatments can be performed, to have small probe imaging equipment available, to have good chemical analysis. The project combines electron microscopy with surface science and thin films technology. Research projects will focus on fundamental thin film research, surfaces and catalysis, and grain boundary studies, involving several groups at Northwestern, collaborations with National Laboratories, and industry. //